Doctoral Dissertation Improvement Grant: Agricultural Adaptation and Socioeconomic Change

Knowing how people adapt their land use in light of changing economic and trade relationships is important for understanding environmental and land management decisions. These decisions become even more complicated when they involve groups with substantial power differences. The archaeological record, with its numerous example cases and substantial time depth, holds valuable insights regarding these issues. This doctoral dissertation project, directed by Kaitlyn Davis and Dr. Scott Ortman of the University of Colorado-Boulder, will assess the interplay between Spanish impositions and Native agency with regard to Pueblo economic and agricultural practices in 16th and 17th century New Mexico. The goal is to better understand the Pueblo agricultural economy prior to and following Spanish contact. The data collected for this project will address gaps in the understanding of the implications of and responses to colonialism in the Americas, reassessing and complicating the colonial narrative in light of Native agency. The data will also help fill in gaps in the understanding of how indigenous arid-land agricultural systems operated, and continue to operate, in the Americas. The multi-crop agricultural potential model produced by this project will be instructive as to where good agricultural areas are in the study area today, and thus has environmental sustainability value and will be of use to scholars as well as farmers. Finally, working with local landowners and Pueblo community members through every step of this project will provide educational opportunities and a positive example of collaborative archaeology.

Spanish colonization of the Northern Rio Grande region in New Mexico contributed to demographic changes, additional demands on the finite land base, and changes in the economic system, including changes in trade networks and taxation. The recent literature on this period has tended to interpret changes in the archaeological record as deriving from the impositions of or resistance to Spanish colonization. While both did occur, what has been overlooked is the extent to which Pueblo people also took advantage of the opportunities presented by introduced Spanish crops, technologies, and livestock, adapting them for Pueblo use and incorporating them into Pueblo life. In previous scholarship, considerations of local agricultural production have been largely divorced from the economic system they fit into. In this project, the researchers will assess the role of Spanish introductions in Pueblo economics and settlement by: 1) creating spatial models of agricultural potential for indigenous and introduced crops and combining these with artifact and settlement data; 2) determining associations between field types and crop types by collecting and analyzing microbotanical samples from various field types at two pre-Hispanic Pueblos and two colonial-era Pueblos; and 3) assessing changing investment in various field types, technologies, and associated crops through surface survey of field features and dateable artifacts at these four sites. These efforts will yield a better picture of agricultural potential versus agricultural investment through time to reveal Native choices in a changing economic and social system.